Volume Changes of McCall Glacier, Alaska, in Response to Climatic Warming in the Arctic

This award is part of the Arctic System Science Program, a U.S. Global Change Program. It will undertake a three year study of the response of the McCall Glacier in northern Alaska to climatic change in the Arctic. The study will evaluate the effects of climatic response on the arctic hydrological cycle through airborne measurements of glacial profiles and evaluation of glacial volume changes which have occurred over the past 40 years. The results of this study will allow evaluation of the relationships between glacier geometry, mass balance and climatological parameters measured at different locations in northern Alaska. Volume change estimates on two other nearby glaciers will be used to determine the degree to which McCall Glacier is representative of arctic Alaska as a whole.